Dissertation Research: A Genetic Analysis of Seed Coat Polymorphism Within Arabidopsis thaliana

To understand the genetic and developmental bases of naturally-occurring
organismal variation is to understand the raw material of evolution itself.
Natural variation in seed coat morphology will be genetically and
developmentally dissected in the model plant Arabidopsis thaliana. A
thorough description of seed coat development for a reference strain (this
is the most commonly-used among many available strains) of Arabidopsis will
be completed and will serve as the standard to which the development and
underlying genetics of both chemically-induced and naturally-occurring
(field-collected) mutants will be compared. Both artificial and natural
mutants will be developmentally characterized and genetically mapped. These
data, in addition to traditional complementation tests (crossing individuals
and analyzing their progeny), will be utilized to identify the number of
loci affecting variation in this developmental pathway and the frequency and
origins of natural seed coat variation.

The seed coat serves as the interface between the plant embryo and its
environment and its roles are many and varied. This relatively simple, yet
highly differentiated structure provides a unique opportunity to investigate
evolutionarily important issues and the potential to identify genes
responsible for the development of a commercially important organ
responsible for such crops as cotton fiber and mucilage, (e.g., Metamucil).